Anatomic and Kinematic Analysis of Head-Neck Movements

The focus of Dr. Keshner's work is to determine the relationship between neck muscle activation patterns and changes at the intervertebral joints. During performance of slow, sinusoidal tracking movements of the head, muscle electromyographic recordings will be made simultaneously with fluoroscopic images of vertebral motion. Recordings from eight neck muscles and fluoroscopic images of seven cervical vertebrae will be stored on-line for later analysis. Correlational measures will be performed to explore the force-velocity relationships between individual neck muscles and the cervical intervertebral joints. Intra- and inter-subject variability will also be examined to determine whether variabililty in the motor system produces variations in the joint displacement patterns. This work will contribute to basic knowledge about how motor programs are organized with respect to the anatomical constraints of the motor system.